Collaborative Research: Open Core Data: Transformative Data Infrastructure for Integrating and Accessing Scientific Drilling and Coring Data

Scientific drilling and coring is crucial for the advancement of the Earth Sciences. Vast
resources have been invested in drilling and coring operations around the world: on land,
in the oceans, and in the polar regions. The return of these investments must be maximized
by ensuring optimal access and re-usability of the data generated through drilling and coring
projects.

This project, Open Core Data (OCD), is a next-generation approach to data management that will
open vast stores of existing and future geoscience data to new and innovative scientific use by
radically improving discoverability, accessibility, citability, preservation, and integration
of data from past, current, and future drilling and coring projects.

Research objectives of the International Ocean Discovery Program and Continental
Scientific Drilling communities provide impressive examples of the breadth of scientific
themes that drilling and coring helps address, ranging from the nature of the deep biosphere
and oceanic sub-seafloor, to understanding environmental change, species evolution, fault
zone dynamics, magmatism, and tectonics, among many others. The scientific potential enabled
by OCD is therefore large and expected to impact many geoscience domains. OCD will form the
nucleus of a federated data infrastructure that will support entirely new scientific approaches
and lines of inquiry by facilitating integration of continental and marine data for synthesis
studies.

OCD will align with NSF data policies to provide open access to all scientific drilling data.
Both research and the process of transferring data to archives for permanent curation will
be simplified and streamlined through this effort. Open Core Data will structure and integrate
scientific drilling data optimally to enable data-driven science that faces substantial barriers
at present related to data heterogeneity in discovery, access, and formats. Open Core Data
will enable geoscience domains that utilize scientific drilling and coring in their workflows
to come closer to realizing the full potential of their data, and to make their own unique
new contributions that benefit science and society as new research is enabled.